Workshop for Presidential Young Investigators in Chemistry and Chemical Engineering; September 20-22, 1987; Philadelphia, PA

This award will enable the 1987 Presidential Young Investigators (PYI's) in Chemistry and Chemical Engineering to meet for a Workshop at the annual meeting of the Council for Chemical Research (CCR) to be held September 20-22, 1987 in Philadelphia. The purpose of bringing the PYI's to the meeting is three-fold. The first and foremost objective will be to allow the PYI's for 1987 in Chemistry and Chemical Engineering to meet with the upper research management of the 38 member companies of the CCR. Hopefully this will give the PYI's an opportunity to interact with and to develop working arrangements with the individuals from industry who have the ability to fund the matching portion of the PYI funding program. The second goal will be to have a one-hour workshop, conducted by Dr. Theodore Tabor of the Dow Chemical Company, devoted specifically to the PYI's with a discussion on "How to obtain matching funds". A third aspect is to provide the PYI's with an opportunity to meet each other and, hopefully, to develop interactions with one another which will last throughout their lives.